Mathematical Algorithms for Computer Simulation

The project focuses on the development of a mathematical foundation
for interaction-based computer simulations that can be
represented as deterministic, discrete-time dynamical systems on
finite state sets. Here, an interaction-based simulation is
considered to be a collection of variables, each equipped with an
update function or a set of rules which is used to compute the state
of that variable at the next time step, based on the states of all
the other variables. Thus, the description of the system is given
via local interactions, and global dynamics is generated through
the simultaneous iteration of all local update functions. Cellular automata
and Boolean networks are examples such simulations. An important
question, that has been studied extensively in the framework of
cellular automata is how one can predict global dynamical features of
such systems from the structure of the local update functions.
By assuming that the state set for each variable is a finite field,
such as the field with two elements used typically for cellular
automata,this problem can be addressed within the framework of computational
algebra. The algorithms developed in this project will become part of
a symbolic computation software package for finite dynamical systems,
implemented in the computer algebra system Macaulay2.

Interaction-based simulation is becoming increasingly important in the
analysis of large biological, epidemiological, and socio-technical
networks, such as the immune system, the spread of infectious diseases
in urban areas, or road traffic and wireless communications networks.
Typically, such networks are understood at the level of individual
interactions, but global information tends to be sparse. The software
design of such systems is very challenging, and so is the
analysis of simulation output, due to the size and complexity of the
simulated systems. A mathematical foundation for such simulations
will provide tools for the design of large-scale simulations. It
will also help to systematically answer questions about
biological and other systems, such as optimal ways to treat infectious
diseases,or how to contain their spread in large populations.